Partial Support of Ninth International Conference on Liquid and Amorphous Metals to be held in Chicago, August 27 - September 1, 1995

9523076 Egami This grant supports the Ninth International Conference on Liquid and Amorphous Metals. The conference provides a forum for bridging basic and applied aspects in a variety of materials ranging from composites and nano-materials to amorphous and liquid semiconductors. About 300 participants from academic, industrial and government laboratories are expected. The Conference takes place in Chicago, Illinois, from August 27 to September 1, 1995. The conference highlights advances in liquid and amorphous metals, encompassing noncrystalline semiconductors and molten salts and the conference proceeding will be published. The following topics will be covered in the conference: liquid and amorphous metals and alloys; metal-nonmetal transitions; liquid and disordered semiconductors; clusters; composite materials; quasicrystals; metal/molten salt mixtures. Atomic structure determined by x-ray, neutron and electron diffraction; dynamics, electrical transport and electronic, magnetic, optical and thermodynamic properties, are addressed, including theoretical and computational as well as experimental approaches. Results obtained from new techniques, taking full advantage of recently commissioned synchrotrons, pulsed neutron sources and high-flux reactors to explore domains and properties previously not accessible, are emphasized. %%% Highlighted topics include new structural materials and applications in energy conversion, electronics, optics/electro-optics, and waste storage. ***